International Conference on Application of Advanced Composite Materials in Infrastructure and Public Works

9303138 Saadatmenesh The conference will be attended by people from various countries and will include presentation and discussions of current and future research as well as ways of integrating advanced composites, which were primarily developed in the aerospace industry, into the construction industry. Every effort will be made to create an atmosphere for effective communication among participants from aerospace industry, construction industry, researchers, and regulatory agencies to pave the way for the transfer of technology from the composite and aerospace industries into the construction industry.